Dissertation Research: Culture and Normative Developmental Models

Previous cross-cultural studies have suggested that cultural meaning systems play a role in the development of differing patterns of attachment behavior. However, no research has been conducted directly assessing the impact of cultural meaning systems on parents perceptions of attachment behavior. The present two-part study will compare lower- and middle-class Anglo and Puerto Rican mothers'views of attachment behavior in toddlers. The first study will examine mothers' indigenous concepts of desirable versus undesirable attachment behavior. Consistent with their individualistic cultural orientation, Anglo mothers are more likely than Puerto Rican mothers to be concerned with the development of autonomy and internal coping resources in their children. In contrast, reflecting their sociocentric orientation, Puerto Rican mothers are more likely than Anglo mothers to emphasize their children's development of qualities important in maintaining interpersonal harmony. Based on mothers' responses, prototypes of attachment behavior considered desirable and undesirable in each cultural group will be constructed. The second study will compare mothers' perceptions of the prototypical toddlers. It is predicted that mothers will rate the toddlers most extremely along these descriptors which are relevant to their culture. This research will contribute to an understanding of the impact of sociocultural meaning systems on mothers' perceptions of attachment behavior. We will learn whether mothers from different sociocultural backgrounds hold contrasting normative conceptions of childhood, and whether these conceptions lead them to evaluate the same child behaviors differently. Through this investigation, the sociocultural elements in models of normative behavior will be made more apparent, and prevailing models of child development will be enriched.